Integral Quadratic Forms and Related Topics

Abstract

Wai Kiu Chan

This grant supports the research of the principal investigator and
his colleagues on the arithmetic theory of integral quadratic
forms and related topics. They will work on the representation
theory of positive definite quadratic forms, the almost strong
approximation properties of simply connected algebraic groups of
compact types, and the classification of quaternary quadratic
forms with improper automorphism groups by their degree two theta
series.

Quadratic forms are homogenous polynomials of degree two in many
variables. This research concerns the number theoretic problems
which arises from deciding which integers can be values of the
quadratic forms when the variables are replaced by integers. It
falls into the area of number theory which is among the oldest
branches of mathematics. Nowadays, quadratic forms and other
kinds of number theory become indispensable tools in communication
sciences, data transmission and processing, construction of error
correcting codes, and cryptography in information technology.